Presidential Young Investigator: Nuclear Magntic Resonance Studies

This project is in the general area of analytical and surface chemistry and in the subfield of nuclear magnetic resonance (NMR) spectroscopy. This research is designed to study the utility of combining magic angle spinning (MAS) of dilute spins like carbon-13 with the sensitivity of abundant spins like protons by spatial localization methods combined with high-power cross-polarization and proton decoupling. It is further proposed that the use of an appropriate pulse sequence, in combination with an rf gradient, should permit rare spin NMR spectra of localized regions of a given sample. Thus, the overall goal of this research is to obtain chemical information from an NMR spectrum within a selected region of a sample. Such an approach should have applications in many areas of chemical research including 1) organic solids and polymers, 2) reactions at interfaces, 3) isotopically labeled molecules doped into porous materials, 4) layered materials, and 5) devices subject to defects cracks or other imperfections. This five year continuing grant to the University of California at Irvine for the support of Professor Shaka as a Presidential Young Investigator is designed to promote his rapid and effective growth as an independent researcher in the area of solid state NMR spectroscopy.